BBSI: Summer Institute in Bioengineering and Health Informatics

Oakland University will host a ten week NIBIB-NSF Bioengineering and Bioinformatics Summer Institutes (BBSI) Program in Bioengineering and Health Informatics under the direction of Dr. Fatma Mili. This Institute will support a total of 60 undergraduate and graduate students, 15 per year for a total of four years.

The primary object of this Institute is to promote graduate studies and careers in bioengineering and bioinformatics to bright and talent students pursuing degrees in Computer, Natural, Health Sciences, and other related majors with a focus on enhancing career opportunities for African American and other minority students in the fields of bioengineering and health informatics. The students will be immersed in a comprehensive learning and research environment and will receive a two-week focused training session followed by eight weeks of full time research. Research will be conducted within a multidisciplinary team and encompasses the full life-cycle from defining the research problem, exploring multiple solutions, discussing progress with peers and wider audiences, and formulating findings and making conclusions.

This project is being co-funded by the Directorate for Mathematical and Physical Sciences (MPS)/Division of Mathematical Sciences (DMS), the MPS/Office of Multidisciplinary Activities (OMA), the Directorate for Computer and Information Science and Engineering (CISE)/Division of Information and Intelligent Systems (IIS), and the National Institutes of Health (NIH)/National Institute of Biomedical Imaging and Bioengineering (NIBIB).